Acquisition of a Closed-Loop Hydraulic Loading System and Data Acquisiton System for Research and Teaching in Structural Engineering (MRI/RUI)

Abstract
A closed-loop hydraulic loading and electronic data acquisition system will be acquired. The system will provide
the the capability to conduct load-controlled or displacement-controlled tests on structural
materials and structural members under static, cyclic, or dynamic loading conditions. The data
acquisition system will be used in conjunction with the hydraulic loading system and will allow
for the simultaneous monitoring of eighty channels of data (strain, load, displacement, etc.). The
equipment requested represents a significant upgrade from the testing systems currently used by
the PIs. The current loading system is limited to static testing, and load can be applied but not
controlled via the manual open-loop system. Current data acquisition equipment is limited in
scanning speed and precision, and cannot accommodate dynamic testing.

The College of Engineering is implementing a seven year strategic plan, and
Structural Engineering is categorized as a thrust area on which emphasis will be placed with
respect to support and development of infrastructure. In conjunction with this plan, a new 9500
square foot experimental laboratory for research and teaching in structural engineering is
scheduled to open on campus in 2004. The testing system requested in this proposal was
designed with this in mind, as the equipment will be usable in both the existing laboratory and the
new facility. The systems designed are also easily upgradeable to accommodate long-term needs.

Through a variety of mechanismsl, undergraduates will have the opportunity to use the requested equipment to conduct
research. Underrepresented groups will benefit as a result of the continued commitment the College of Engineering toward providing opportunities for these groups in engineering education.